Symposium on Quantum Fluids and Solids to be held at Cornell University, Ithaca, New York, June 12-17, 1995

9420841 Parpia A Symposium on quantum fluids and solids will be held in Ithaca on June 12 - 17, 1995, on the campus of Cornell University. Instrumentation for physics at low temperatures together with the results achieved by the application of these techniques will be emphasized. Attempts will be made to integrate the interests of the quantum fluids and solids community with those of physicists in diverse fields. % % % A symposium on the properties of solids and liquids at low temperature will be held in Ithaca on June 12 - 17, 1995 on the campus of Cornell University. The symposium will emphasize the techniques and technology of low temperature physics together with the results achieved by the application of these techniques. Scientists with established research programs in diverse areas such as gravitational antennas, detectors (gravitational, microwave, infrared), micromechanical devices, and Nuclear Magnetic Resonance Imaging will be invited. ***